NSFNET

Augustana College is establishing a connection to NSFNET via a 56,000 bits per second line through the MIDNET mid-level network. The connection enhances collaborations of campus scientists with colleagues in fields including biology, speech and communication, social work and mathematics. This award funds part of the costs for two years.***//